The Incorporation of Interdisciplinary Strategies in an Undergraduate Mathematics Course at The American University

A laboratory is being developed which will provide more interdisciplinary approaches in the Calculus and Finite Mathematics courses, and which will incorporate interdisciplinary strategies and corresponding use of technology into other major and service courses. The instructional strategies employed within the undergraduate courses will more effectively demonstrate the real-life applications of mathematics and statistics via scientific experimentation and data-gathering and